Arithmetic and Geometry of Algebraic Varieties

The project addresses questions concerning the distribution of
rational and integral points on higher dimensional algebraic varieties.
The main problem is to relate the Zariski density and the asymptotic
distribution of points to global geometric invariants.

Number theory is one of the oldest branches of mathematics.
Today it is marked by profound connections to geometry
and analysis. It has a wide range of applications to
data transmission, storage and cryptography. For example,
many algorithms are based on arithmetic properties of elliptic curves.
This research explores the higher dimensional case of surfaces
and threefolds.